Research Workshop: Environmental Issues Related to Industrial Competitiveness

The objective of this project is to provide support for the American Academy of Environmental Engineers to conduct a conference/workshop to determine the environmental engineering research needed to assist the United States in becoming more competitive than it now is with other industrialized countries that do not have the relatively high costs associated with meeting environmental quality goals as are prevalent in the United States. The American Academy of Environmental Engineers is an organization that certifies persons who are determined to be qualified in air pollution control, general environmental engineering, hazardous waste management, industrial hygiene, radiation protection, solid waste management, water supply and wastewater and in sanitary engineering. The academy is sponsored by the Air Pollution Control Association, the American Institute of Chemical Engineers, the American Public Health Association, the American Public Works Association, the American Society for Engineering Education, the American Society of Civil Engineers, the American Society of Mechanical Engineers, the American Water Works Association, the Association of Environmental Engineering Professors, the National Society of Professional Engineers, and the Water Pollution Control Federation. The Academy plans to hold this conference/workshop in the metropolitan Washington, D.C. area late in October or in November of 1988. Topics planned for consideration include modeling for engineering practice to determine the location of pollution abatement systems; innovative concepts, processes and systems for treatment of water to meet use- requirements and treatment of wastes to reduce their pollutional effect on the environment; detoxification of hazardous organic substances; and process modifications to reduce or eliminate production of wastes. Current environmental quality standards in the United States are aimed at safeguarding the quality of life in the nation. Improvements in ability to meet existing and future standards at lower cost could have a significant effect on improvement of the ability of the United States to compete more successfully than it now does with other industrial countries.